RUI: Study of 14N and 25Mg Proton Capture Reactions

This proposal supports participation of the PI and undergraduate
students in research conducted at the Low Energy Nuclear Accelerator
laboratory (LENA). The main focus of these measurements will be low
energy p-gamma reactions of astrophysical interest. Since many
measurements of astrophysical interest involve very low counting rates
and large backgrounds, computational routines will be used to aid in the
design of a detector for LENA which maximizes efficiency and minimizes
background. The proposal will also support participation of the PI and
undergraduate students in data collection and analysis for experiments
done at LENA. The first proposed experiments after completion of the
laboratory are, 14-Nitrogen (p-gamma) 15-Oxygen with results expected to
reduce the uncertainty in S(0), and 25-Magnesim (p-gamma) 26-Aluminum
addressing reaction rates for low-lying resonances corresponding to
lower stellar temperatures.